EAGER: Portable, Secure Emulation for Digital Preservation

The objective of this project is to enable archives and libraries to securely deliver born-digital materials to networked patrons. Examples of such materials include commercial and academic publications such as interactive CDROMs as well as the archived materials of citizens. Archives are increasingly accepting disk drives or even entire computers, yet access to such materials requires the use of obsolete software designed for archaic platforms. Further, access to these materials may be restricted to authorized researchers. This project will project will make it possible to deliver such materials over the Internet while retaining institutional control. This will provide further access to materials, many of which may be products of Federally funded research.

This project will develop and evaluate viable emulator architectures supporting remote access to born-digital materials while addressing three major issues: (1) portability and maintenance of emulator platforms, (2) principled control of required system software, and (3) principled control of digital artifacts. The definition of "principled control" may vary with the materials being accessed -- from copyright control, to secure access to sensitive materials. This project will weave together existing technologies (e.g. trusted platform modules) in potentially novel ways to solve a pressing societal problem.